Why Northern New Englanders Seldom Commit Murder: Violent Crime and Violent Death in New Hampshire and Vermont

9808050
Roth

Since the nineteenth century, scholars have written voluminously on homicide the U.S. to try to explain why this country has the highest rates of violence among industrialized nations. Little work has been done on homicide and other violent crimes where rates are low. Northern New England, where violent crime rates are among the lowest in the nation, has been largely neglected. Studies of Southern, immigrant, minority, urban violence rest on assumptions, usually implicit, about why homicide rates are low among Northern, settled, native, rural, white people. The purpose of this project, therefore, is to create a long-term, disaggregated time series of violent crimes and violent deaths in New Hampshire and Vermont. The study includes suicides, accidental deaths, and casualties of war, because the history of homicide is intricately intertwined with the history of reckless behavior , although the focus is homicide. Data will be compared to those from selected counties in Ohio, Georgia, and Virginia so hypotheses concerning northern New England can be tested. Data analysis methods include exploratory data analysis, log-linear analysis, and other appropriate techniques. Results of this work are expected to have a major impact on sociolegal theorizing about the factors that contribute to violence and will provide an historical contrast for policy makers who hope to intervene to reduce current levels of violence.

%%%

Since the nineteenth century, scholars have written voluminously on homicide the U.S. to try to explain why this country has the highest rates of violence among industrialized nations. Little work has been done on homicide and other violent crimes where rates are low. Northern New England, where violent crime rates are among the lowest in the nation, has been largely neglected. Studies of Southern, immigrant, minority, urban violence rest on assumptions, usually implicit, about why homicide rates are low among Northern, settled, native, rural, white people. The purpose of this project, therefore, is to create a long-term, disaggregated time series of violent crimes and violent deaths in New Hampshire and Vermont. The study includes suicides, accidental deaths, and casualties of war, because the history of homicide is intricately intertwined with the history of reckless behavior , although the focus is homicide. Data will be compared to those from selected counties in Ohio, Georgia, and Virginia so hypotheses concerning northern New England can be tested. Data analysis methods include exploratory data analysis, log-linear analysis, and other appropriate techniques. Results of this work are expected to have a major impact on sociolegal theorizing about the factors that contribute to violence and will provide an historical contrast for policy makers who hope to intervene to reduce current levels of violence.